Elementary Particle Physics Using Electronic Detectors

9901496
Sculli
This proposal requests support for the Experimental High Energy Physics group at New York University to participate in two major experimental programs: The MILAGRO Gamma Ray Observatory, which is a large water Cherenkov counter built in a mountain top artificial pond at an altitude of 2650 meters at Fenton Hill, New Mexico, and the MECO experiment proposed for Brookhaven National Laboratory to search for lepton flavor violating processes, specifically, muon to electron conversion, at an unprecedented level of precision, which will test the predictions of supersymmetric grand unified extensions of the Standard Model or will result in a fundamental new discovery. In addition, the group has been involved in Run I of the D0 experiment at Fermilab, but it is proposed not to participate in Run II, so this activity is being phased out.